PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Bradley Dirks is " Further Study of Singularities using mixed Hodge modules and V-filtrations" The host institution for the fellowship is Stony Brook University and the sponsoring scientist is Christian Schnell.